Physiologic Effects of Mechanical Stress on Microbial Cells Immobilized by Entrapment

Research is underway to investigate the effect of mechanical stress on the growth and metabolism of microorganisms. Mechanical stress here is due to the physical crowding of cells against each other in an entrapped environment. Specific objectives of the research are: to characterize microbial growth as a function of mechanical stress; to characterize the morphology of mechanically stressed microbial cells; and to test a water stress hypothesis. By contributing to an improved understanding of entrapped cell physiology, this study intends to facilitate the design and analysis of immobilized cell technology.